Development of Science of Computing 1 and 2 Courses at SUNY Geneseo

A two-semester introductory sequence for computer science majors is being developed with equal emphasis on programming, mathematical analysis, and experimentation, along with the supporting mathematics. This sequence teaches the three topics concurrently and provides a rigorous foundation so that students can practice programming, analysis and experimentation immediately and continue throughout the curriculum. The courses concentrate on developing mastery of the three foundations of computer science rather than on surveying various sub-fields of the discipline.